Mathematics Leadership Network

The main goals of the project are to offer a comprehensive mathematics inservice program to 125 teachers in southwestern New England over a period of two years plus followup activities. The participants are to learn how to serve as resource teachers in their respective school districts. The program builds on a previously funded project whose primary focus was directed to elementary school teachers. This project expands the previous efforts to offer experiences to elementary and secondary teachers. Also, the model developed in the previous project is to be expanded here, both in subject matter background and in pedagogical considerations, especially with emphasis of the constructivist approaches to mathematics instruction. There are four components to the present project: a two week summer institute to provide concentrated and intense activities; followup during the academic year by project staff to help the participants implement the pedagogical structures; academic courses offered during the school year; and finally, a supervised internship as resource teachers. The project was designed with local support and guidance as an outgrowth of the previously funded project and in response to needs expressed by teachers and administrators who participated in the earlier project. The participants are selected from among those recommended by the school districts that have committed to the project. The cost sharing is $182,101 which amounts to 182,101/445,030, or 41% of the funds requested from National Science Foundation. The staff and consultants have excellent qualifications to conduct this project.